CT-ISG: Collaborative Research: A Framework for the Modeling and Management of Obligations in Security Policies

The correct behavior and reliable operation of an information system
relies not only on what users are permitted to do, but oftentimes on
what users are required to do. Such obligatory actions are integral
to the security procedures of many enterprises. The management of
obligations in security policies imposes significant technical
challenges since obligations bear quite different properties from
traditional access control. For example, obligations assigned to
users often cannot be enforced. Thus, even if a system¡¯s reference
monitor is trusted, the failure of obligations must be considered,
and appropriate remedies need to be an integral part of security
policies. Also, the interaction between obligations and other
components of security policies (e.g., access control) must be
considered to ensure their consistency.

This project develops a comprehensive framework for the management
of obligations in security policies, which covers the full life
cycle of obligations, including obligation modeling, specification,
analysis, monitoring and discharges. Specifically, the project
formally identifies the desirable security objectives that are
characteristic of systems that involve obligations, and
systematically investigates dynamic and static means to maintaining
these objectives while such systems evolve. Though the framework is
formal in nature, and is designed on purpose to be general, the
evaluation of its usefulness and effectiveness is firmly grounded on
real applications, in particular, in the context of privacy policy
enforcement in health care systems.

This project aims to establish a solid foundation for the management
of obligations, and significantly improve the understanding and
practice of obligations in information systems. The societal benefit
of the project also results from the development and dissemination
of education resources on new types of security policies beyond
traditional access control.